Theoretical Studies Optical Nonlinearity and Optical Bista- bility in Solid State Materials

Optical nonlinearity and bistability are active research areas both experimentally and theoretically. This research concerns the theoretical understanding of the stationary and dynamical behavior of various solid-state materials. While the effort concentrates on the multiple quantum well structures of GsAsGaA1As, because of the wealth of experimental results two other compounds are also being analyzed. Because the research is leading to large computer simulations, access to advanced scientific computers is being authorized.